Parallel and Efficient Optical MSD Arithmetic Processing

The modified signed-digit (MSD) number system, because of its inherent weak interdigit dependance, has been suggested as a useful means for a fast and parallel digital arithmetic. Recently, using various optical logic and memory processing techniques, optical MSD arithmetic operations have been proposed. However, in most existing optical schemes, a multiple-stage algorithm is utilized. For a multi-stage approach, because of optical cascading, additional signal energy loss and speed reduction is unavoidable. To maintain a fast processing speed, a single-stage holographic optical content-addressable memory (CAM) based MSD algorithm was suggested. However, due to its sophisticated three-step phase-switching recording, its experimental implementation is difficult to achieve. In this research program, a novel non-holographic opto-electronic CAM based fast MSD addition processing architecture is developed. The proposed concept has been verified with our first-order proof-of-principle experiments. As figure of merit comparison of this and other existing approaches has also been made. Based on this key opto-electronic CAM element, implementation of more sophisticated MSD arithmetic operations are possible. Finally, for the completion of a MSD arithmetic processing, the conversion between the conventional binary and MSD numbers, an issue that other optical approaches did not address, is also under investigation.